Testing of the Sulfur Chemiluminescence Detector and its Application to the Arctic Atmosphere

9634262 Benner In this project, the development and testing of a diffusion denuder sulfur chemiluminescence detector (D/SCD) for sub-part-per-billion levels of sulfur dioxide in ambient air will be continued. The performance of this technique will be tested in a double-blind intercomparison at the South Dakota School of Mines and Technology. During a previous double-blind evaluation of this technique, problems were encountered with measuring sulfur dioxide at part-per-trillion levels, and a second evaluation was recommended by the Gaseous Sulfur Intercomparison Study (GASIE) planning committee. Interference issues have been identified and will be remedied. ***